NSF Workshop on HPCC: Vision, Natural Language and Speech Processing and Artificial Intelligence, Washington, D.C., February 21-22, 1992

This proposal is concerned with a workshop on High Performance Computing and Communications (HPCC) for Grand Challenge Applications - Vision, Natural Language and Speech Processing, and Artificial Intelligence. This workshop will bring together 22 invited experts from academia and industry, with the goal of identifying near-term and long term problems in supporting these grand challenge application problems. Many traditional results in these grand challenge applications involving vision, natural language and speech processing, and artificial intelligence were developed without the availability of HPCC systems. On the other hand, computer architects design HPCC systems without considering requirements in vision, natural language and speech processing, and artificial intelligence applications. In this workshop, key issues and potential approaches/research directions for the next five to ten years will be identified, with the goal of answering the following problems: (1) What are grand challenge applications in vision, natural language and speech processing, and artificial intelligence that can be benefited by the availability of HPCC systems? (2) How should HPCC systems be designed so they can support grand challenge applications in these areas? The interdisciplinary HPCC initiative has created a needed for infrastructure development and program planning. The proposed meeting will bring together about 22 experts in the fields with representatives of NSF to discuss current research issues and formulate interdisciplinary research frameworks. The goal of the meeting is to produce a report describing those issues and frameworks which will then be disseminated to the research community.